Lung Deposition of Highly Agglomerated Nanoparticles

Peter H McMurry
University of Minnesota-Twin Cities
Proposal 0646507

Lung Deposition of Highly Agglomerated Nanoparticles

ABSTRACT

It is hypothesized that lung deposition of highly agglomerated nanoparticles differs from that for spherical particles of the same mobility size (diffusivity). We will synthesize nanoparticulate agglomerates that are similar in composition and structure to those that are currently being produced in large volumes, and we will accurately measure their transport properties (diffusion coefficient, sedimentation speed, dynamic mobility,
aerodynamic diameter) as a function of their mobility-equivalent diameter. We will then
measure the mobility-size-dependent deposition of these particles in models of the respiratory system extending from the mouth through the 8th generation of the upper respiratory tract. Deposition of spherical nanoparticles as small as 3 nm in the same airway models will be measured, and these results will be compared with values for the agglomerates to determine whether or not agglomerate structure affects deposition in this part of the respiratory system.